Collaborative Research: VINES: Track 1: AI-Empowered Semantic Communications with Energy Efficiency and Privacy Preserving for IoT-Enabled Emergency Response

Efficient and robust data transmissions are critical to make Internet-of-Things (IoT)-enabled emergency response systems work effectively because massive data are collected by IoT sensors and then transmitted to servers for real-time processing. This project designs a novel semantic communication framework for smart emergency responses. Through AI-empowered information extraction and semantic-based data regeneration, the project will reduce communication overhead and improve energy efficiency in data transmissions, enabling reliable and efficient mission-critical applications for emergency responses and disaster management. The project also provides new educational opportunities to students and young talents through summer tutorials, workshops, curriculum development, and research activities.

This project aims to develop innovative AI-driven semantic communication techniques for IoT-enabled emergency response applications. Specifically, the proposed research activities are structured into four major tasks: 1) building an AI-native semantic communication framework with efficient representation embedding and data regeneration; 2) designing effective methodologies and strategies to deal with unseen emergency events and enhance energy efficiency for model training and updating; 3) developing advanced neural network pruning methods to enable lightweight and computation-efficient semantic communications; and 4) investigating effective mechanisms for privacy protection of sensitive emergency data during semantic communications.